Nonlinear Dynamics of Electrophysiological Neural Models

Hoppensteadt
0109001
The investigator and his colleague study the relation
between bifurcations in neural dynamics and electrophysiological
features of neurons. There is growing understanding of the role
of bifurcations in neuron dynamics. Indeed, knowledge of all
bifurcations in a neuron model can explain some features of
neuron activity, such as the existence of oscillatory potentials,
synchronization, bursting, excitability, etc., without knowing
electrophysiological details. However, there is little
understanding of the relationship between electrophysiology and
bifurcations in neural dynamics. For example, why do certain
ionic currents or combinations of them result in an Andronov-Hopf
bifurcation but not a saddle-node on limit cycle bifurcation?
(These two types of bifurcations describe Hodgkin's
classification of excitable neurons.) Over 100 different kinds
of recognizable bifurcations result in bursting patterns of
activity. A key question is whether or not one can determine for
a given type of bursting activity what combinations of ionic
currents must (or must not) be involved. The investigator and his
colleague introduce here a notion of minimal electrophysiological
models classified by voltage gated, second messenger gated, and
variable Nernst potentials. They map this classification onto the
existing classification of bifurcation mechanisms in neuron
dynamics. This yields a deeper understanding of nonlinear
dynamics of electrophysiological systems.
How does a brain encode and process information?
Mathematics has played an important role in studies of this
problem to date by creating methods for analyzing results
obtained by life science and medical researchers. There is a
well-developed electrophysiological theory of how neural tissue
can sustain and propagate electrical activity using ionic
currents. At the same time there is an emerging mathematical
theory based on canonical models of bifurcations, which are
observable changes in a biological preparation in response to
stimulation. This project brings these two lines of inquiry
together by classifying dynamical systems (mathematical
structures) in terms that are consistent with electrophysiology.
The result is a deeper understanding of nonlinear phenomena in
electrophysiological systems.